High-Performance Computing Laboratory

9508543 Perry The Departments of Mathematics and Statistics at the University of Kentucky will purchase high-performance computing equipment which will be dedicated to the support of research in mathematical sciences. This equipment will substantially advance the following research projects: Large-Scale Numerical Linear Algebra Problems. As a part of the continuing LAPACK project, Professor Bai will work on theoretical analysis and implementation of numerical algorithms for large-scale eigenvalue problems. Molecular Conformations from Nuclear Magnetic Resonance (NMR) Data. Finding molecular conformations is a "Grand Challenge" problem in high-performance computing and communications (HPCC). Professor Hayden will develop algorithms to calculate molecular conformations from NMR data and distribute the resulting software through the Quantum Chemistry Program Exchange. Numerical Investigation of Scattering Resonances. Professor Perry will study the distribution of scattering resonances for hyperbolic surfaces in order to elucidate the connection between classical dynamics and quantum scattering. Animated Plots for Robust Regression. Professor Stromberg will study how animated residual plots can be used to assist practitioners in selecting parameters for robust regression estimators as well as how three-dimensional plots of various robust regression parameter estimates can be used to differentiate between the estimates.